Dissertation Research: Human Impacts on Prehistoric Faunas: A Zooarchaeological Analysis of San Francisco Bay Shell- mounds

Under the direction of Dr. Donald Grayson, Mr Jack Broughton will collect data for his doctoral dissertation. He will analyze faunal materials from archaeological sites in the San Francisco Bay region of California and use this information to reconstruct patterns of changing environment and human subsistence over an approximately 4,000 year period. Since the beginning of this century archaeologists have directed attention to the numerous shellmound sites located in the Bay region. Many of these mounds were of tremendous size, measuring up to 100 x 300 meters across and as much as 9.8 meters in depth. Excavations of them have documented thousands of years of human prehistory and because of the abundant mammal remains it is possible to examine how human diet changed over time. Mr Broughton will study faunal materials from a number of sites. In addition to identifying bones by species, he will measure then to reconstruct body size. In this way he will be able to determine the effect of human predation on prey populations. Using ideas derived from optimum foraging theory he has predicted how degree of predation should be reflected in these remains. This research is of significance for several reasons. First it will increase our understanding of how prehistoric U.S. populations subsisted and adapted to environmental conditions over thousands of years. Of equal importance is what it may reveal about the population dynamics of animals such as sea otter, deer and elk. It appears that at some times in the past - such as when the first Spanish explorers entered the region - herds of deer and elk were enormous. At other times in the more distant past such species appear to be less common and Mr. Broughton wishes to determine the extent to which human predation was responsible. This research should not only increase our understanding of the past but also suggest optimum game management strategies. It will also assist in the training of a promising young scientist.